Theoretical Nuclear Physics

This work will continue a program of studies in theoretical nuclear physics on problems of three-body forces in nuclei, nuclear charge asymmetry, hypernuclei and quark cluster models. A three body cluster model will be applied to study Lithium-six.